Analytic Studies on Pseudo-holomorphic Maps

Abstract

Award: DMS-0406454
Principal Investigator: Thomas H. Parker

This project involves analytic aspects of the theory of
pseudo-holomorphic curves. The aim is to develop effective
methods for computing Gromov-Witten invariants of symplectic
manifolds and enumerative invariants of algebraic manifolds. The
main thrust is a continuing project with E. Ionel on the
Gromov-Witten invariants of six-dimensional manifolds. String
Theory is especially effective in making predictions about a
special type of six-dimensional spaces called Calabi-Yau 3-folds.
One of the most fascinating predictions of String Theory is the
Gompakumar-Vafa conjecture, which claims that the plethora of
Gromov-Witten invariants are determined by a more limited
collection of `BPS numbers'. The first proposed project seeks to
derive and prove the Gompakumar-Vafa formulas by adapting the
analytic methods that C. Taubes developed to relate the
Seiberg-Witten and Gromov invariants. This approach to the BPS
numbers is different and more geometric than the physicists'.

The proposed work also includes efforts to extend the PI's
previous work on Relative GW invariants to invariants relative to
``a stratified symplectic subspace'', and to give a geometric and
computationally effective description of the virtual fundamental
class for symplectic manifolds which are not necessary
semipositive. A fourth project concerns the ``modified GW
invariants'' defined by the P.I.'s student Junho Lee; those make
it possible to study a class of manifolds (Kahler surfaces with
positive geometric genus) where there are important conjectures
that are not currently approachable by GW methods. The last
project is geometric analysis of a different sort aimed at
understanding how supersymmetry simplifies expressions for heat
kernels on manifolds.

One of the most notable developments in mathematics in the past
decade has been the remarkable confluence of ideas coming from
String Theory, Algebraic Geometry, Partial Differential
Equations, and Symplectic Geometry. A major part of that story
revolves around the idea of counting holomorphic curves in
algebraic manifolds. That problem was studied for 100 years with
few results. Then, around 1990, it was realized that the problem
can be translated into symplectic geometry and tackled using the
powerful machinery of mathematical gauge theory. (Gauge theory,
originally part of physics, has been the focus of many very
fruitful interactions between mathematicians and physicists over
the past twenty years; it includes Yang-Mills and Seiberg-Witten
Theory, and String Theory). This `Gromov-Witten invariant'
approach led quickly to formulas answering some of the original
curve-counting problems. The subject is now advancing rapidly on
many fronts, and is being continually stimulated by the
predictions of physics. This project is aimed toward further
developing this theory using the gauge theory that is approach
most closely aligned with physics, and to use the symplectic
approach to make conceptual bridges between the algebraic and
physics viewpoints.